US-France Cooperative Research: Piezoelectric and Magnetostrictive Actuator Development

0089820
Becker

This three-year award for U.S.-France cooperative research involves Michael F. Becker, John W. Keto, and Desiderio Kovar at the University of Texas, Austin, and Philippe Pernod and his group at the Ecole Centrale de Lille in Lille, France. The objective of the research is the development of integrated actuators using nanoparticle based thick film materials and MEMS (Micro Electro Mechanical Systems) theory and design. Piezoelectric and magnetostrictive actuators will be produced by using supersonic jet deposition of nanoparticle derived films. The US group brings to this collaboration expertise in the preparation of special nanoparticle generation, materials design and testing of MEMS actuators. This is complemented by the French group's expertise and experience in actuator manufacturing and materials.

This award represents the US side of a joint proposal to the NSF and the French National Center for Scientific Research (CNRS). NSF will cover travel funds and living expenses for the US investigators and graduate students. The CNRS will support the visits of French researchers to the United States. The collaboration will advance fundamental understanding of nanoparticle generation and the development and engineering process for new MEMS actuators.